PACMACS Bridge Program

The PAthways to Careers in Mathematics And Computer Science (PACMACS) Bridge program at Saint Joseph's University is awarding scholarships to students pursuing mathematics and computer science degrees who demonstrate both academic potential and financial need. Special emphasis is being given to recruiting minority high school students from Philadelphia public and private high schools. Scholars are participating in a bridge program where they receive special assistance during the transition period from high school to undergraduate studies. Scholars are being supported by activities including faculty mentoring, supervised study sessions, tutoring, and individualized tutoring.